Modeling Bed-Surface Dynamics In Gravel-Bed Rivers

0106561
Wilcock

Bed surface coarsening, broadly termed armoring, is a pervasive feature of
gravel rivers. Armoring strongly influences channel hydraulics, determines
the population of grains available for transport, and defines the habitat
for aquatic invertebrates, salmonid spawning, and juvenile fish. A general
and predictive understanding of flow, transport, and benthic ecology in
gravel-bed rivers requires an ability to predict the bed surface
composition as a function of water and sediment supply. In general, the bed
surface is not in equilibrium with contemporary conditions, so cause and
effect cannot be deduced from simple correlations of field observations.
Instead, we turn to the laboratory for controlled observations and to
computational models to capture the varied and transient conditions in the
field.

Observations of armoring have been made for decades and algorithms capable
of predicting armoring have been developed. Key elements are missing in
both data and models, however, and the empirical and the theoretical have
not yet merged into a complete model. This work aims to bridge that gap by
building from both sides. On the empirical side, we will use a laboratory
flume to make coupled observations of flow, transport, and bed surface
composition in order to describe the evolution of surface and subsurface
grain sizes with unprecedented spatial and temporal detail. On the
theoretical side, we will develop a transport and armoring model that
includes size-dependent vertical transfer of grains between surface and
subsurface (kinematic sorting). This mechanism can be incorporated in
current models, but the necessary transfer functions remain undefined and
will be identified using the data from the experimental portion of this
project. Testing of the model will be based on internal comparisons
between different sediment supply configurations and a set of runs with
progressive bed aggradation and degradation. The result will be a
physically-based, tested model capable of predicting transport and armoring
under the complex, transient conditions typical of the field.